An Applied Mathematics Computing Laboratory

Using the tools of practicing applied mathematicians - symbolic mathematics, numerical analysis and graphics packages, the faculty will restructure the teaching of Calculus, Linear Algebra, and Differential Equations. The project will use the successful philosophy and strategies of the department's Applied Mathematics Laboratory to undergraduate mathematics courses. The laboratory sessions will focus on applications and not programming. Students will work on a team solving applied mathematics problems posed by local industry. Replicability will be accomplished through publication of the software packages and problems. The grantee is providing an equal sum for the equipment obtained from non-Federal sources.